DOCTORAL DISSERTATION RESEARCH: Aspects of Northern Paiute Grammar

The NSF-supported research will be on the grammar of Northern
Paiute (Numic, Uto-Aztecan). The dissertation, Aspects of Northern Paiute
Grammar, will be an exploration of word-formation processes, syntax, and
discourse-related topics surrounding referent-tracking and topicality and
will include a body of analyzed texts. The dissertation topic was chosen
to accomplish two interconnected aims: 1) present a thorough description
of the major aspects of Northern Paiute grammar and 2) provide the
linguistics community with information for theoretical and comparative
purposes on a language about which very little has ever been published.

The project includes text collection and analysis as the basis for
exploring various aspects of Northern Paiute grammar. Texts of various
genres -- traditional, ethno-historical, and autobiographical narrative as
well as the recounting of daily experiences and conversation in the
language -- will be recorded, analyzed, and entered into a computer
database; this will ensure a variety of grammatical forms and styles in
context for this and future studies as well as provide the community with
documentation of the language for the purpose of preservation. Members of
the Burns Paiute community will assist in this project both in the role of
consultants and, through training, in the process of transcription and
translation. This will help to ensure that tribal members will be able to
continue their involvement in documentation and preservation efforts.

Besides using audio tape to record texts, video recordings will
also be made. From the point of view of text analysis, video provides
insight into the text in ways that audio cannot--most notably by including
gestural content. From the perspective of the community, video is often
more accessible, particularly to younger generations, and can be more
easily utilized in language teaching situations. This project is
specifically designed to benefit two communities: 1) the scientific
community in linguistics, by providing important data on a
little-documented and endangered human language, and 2) the Northern
Paiute communities who wish to have more information
on their language of heritage.